Engineering Research Equipment: X-Ray Fluorescence Spectrometer for a Rapid in Situ Aquatic Survey System

9700004 Noakes This grant provides funds for the purchase of a multi- dispersive x-ray fluorescence (XRF) spectrometer that will be incorporated into a CAIS-designed shipboard system for rapid data collection, analysis, and mapping in aquatic environments. The Continuous Sediment Sampling and Analysis System, or CS, uses a submersible pump mounted on a towed sled to deliver a continuous stream of surface sediments to a shipboard processor. Samples can be immediately analyzed for elemental constituents using XRF spectroscopy. The multi-dispersive instrument incorporates both wavelength- dispersive and energy-dispersive systems in one unit, providing superior analytical results for sediment elemental constituents by improving reliability and reducing the minimum detection levels that can be measured. ***